CT-ISG: Integrated Enterprise Security Management

The complexity of modern large-scale systems has caused a transition
from a purely perimeter-based defensive model to one where security
mechanisms pervade the infrastructure. However, there has not been a
corresponding evolution in the model under which security policy
operates in such environments: policies must still make independent
decisions using only partial information: just what is known by that
component at the time the decision is made. Thus, security policy must
operate under certain assumptions that often cannot be validated. Such
unchecked assumptions offer a way for attackers to bypass security by
exploiting unforeseen loopholes. Consequently, administrators often
use additional security mechanisms, such as intrusion-detection
systems, that are poorly integrated with each other and with the
explicit system access-control policy.

This project is exploring the use of coordinated security policy
mechanisms in heterogeneous, large-scale distributed environments. The
assumptions on which security policy decisions are based are always
checked against current facts. Changes of these facts are signaled by
events propagated to other security-critical elements. Security
mechanisms become dynamic, allowing for coordinated and continuous
policy re-evaluation throughout the duration of an entity's
interactions with the various components of the system. This model
naturally integrates access control, intrusion detection and other
defensive mechanisms, allowing for the unification of protection and
reaction under the auspices of a common security policy. The result is
a more reliable and robust computing infrastructure that is resilient
to new threats and attacks, and bridge the gap between the
capabilities offered by advanced defense mechanisms and the inability
of security policy to take advantage of them in a coherent,
coordinated manner.